New Materials for Coupling Electron and Ion Transfer Across Model Archaebacterial Membranes

9319099 Thompson The development of optoelectronic switching and storage devices based on planar bacteriorhodopsin films has been the focus of intense international research efforts. Utilization of these devices is envisioned in a variety of pattern recognition systems where rapid storage of high densities of optical information with long storage lifetimes (> 1 ms) is required. Although device prototypes using bacteriorhopsin have been built that achieve this, their design is limited by the stability, photophysical and absorption characteristics of the multiple excited states, and poor directional control of bacteriorhdopsin in planar arrays. The objective of the proposed research is to synthesize and characterize a new class of materials that will couple photochemically induced electron and ion transport reactions in oriented, thin membrane films for application in optoelectronic devices. Immobilization of these materials onto optically transparent electrode surfaces will provide a degree of photochemical and electrochemical tunability in these materials that is currently lacking in the bacteriorhopsin-based devices. %%% Gramicidin A-porphyrin-quinone (GAPQ triads, patterned in concept after the membrane-bound reaction centers of photosynthetic bacteria and plants, will be synthesized and incorporated into vesicles composed of model archaebacterial bipolar membrane lipids (bolalipids). These materials will complement each other in a composite triad/bolalipid photochemical system by: 1) vectorially orienting the porphyrin and quinone within the membrane to produce an asymmetric membrane structure having both oxidizing and reducing surfaces, 2) inhibiting self-annihilation of the initially charge- separated pair by placing terminal donor and acceptor moieties at opposing membrane interfaces, 3) increasing the rate of transmembrane electron transfer by reducing the donor-acceptor separation distance, and 4) compensating for membrane polarization resulting fro m transmembrane electron transfer by incorporating a monovalent ion channel to dissipate the buildup of potential gradients. This proposal describes preparative chemistry, structural and photochemical characterization, and sodium ion conductance measurements aimed at optimizing vectorial electron and ion transfer rates across bipolar lipid membranes. The materials aspects of the proposal are focused on developing modular bolalipid and GAPQ synthetic pathways such that facile system integration with respect to interfacial reactivity, efficient transmembrane charge separation, and immobilization on solid support materials can be achieved. Experiments designed to probe the triad orientation, ion channel properties, photochemical kinetics, and electron/ion coupling in various GAPQ/bolalipid composite membrane configurations using laser flash photolysis, differential scanning calorimetry, nuclear magnetic resonance, and electron microscopy techniques are also proposed. The results of these investigations will then be used to devise a suitable system for testing on microporous and ITO supports. ***